CAREER: Ellipis Resolution in English in Natural Language Processing Systems

The objective of this research is to develop a system that reliably resolves ellipsis in English. The system will accept syntactically annotated input, and it will produce output in which elliptical expressions are resolved, either by producing a non-elliptical paraphrase or by linking the elliptical expression to its antecedent. The system will be develmped using the Penn Treebank, a syntactically annotated corpus of several million words, containing a wide range of texts of varying styles. This research makes crucial use of newly available syntactic annotation and associated tools in the Penn Treebank. The system will be tested on examples from the Treebank to determine the percentage of cases in which ellipsis is correctly resolved. The primary goal of the system is to develop a practical solution to a major outstanding problem in computational linguistics: determining the antecedent for ellipsis occurrences. The project will also have an important secondary benefit: it will result in a massive amount of valuable data for theoreticians studying ellipsis and related phenomena.